Analysis of Processes Associated with Replication of Subviral RNAs in the TCV System

The processes by which plant viral and subviral RNAs replicate and produce disease symptoms are not understood. One particularly intriguing question concerns the origin of linear subviral RNA multimers. A proposed model suggests that multimers are formed by the same process as the generation of discontinuous RNAs in the same system; the replicase reinitiates synthesis before releasing the newly synthesized strand. This model will be tested by following the formation of multimers and monomers in a protoplast replication system as well as analyzing different satellite RNA mutations which affect the ratio of monomers and multimers produced in vivo. A second question involves the recent finding that reiterative copying of redundant nucleotide can occur under specific circumstances in a subviral RNA accumulating in plants. In certain animal viruses, this process, known as replicase stuttering, results in the exposure of cryptic reading frames. A model involving a stable stem loop structure in the region of the nucleotide additions will be tested using deletion analysis and in vitro mutagenesis techniques. The possibility of a physiological role for reiterative nucleotide copying will be addressed by transferring a "stuttering cassette" to a heterologous viral RNA and testing for the ability to insert additional, non- encoded nucleotides. //